A Compact Laser Excited Coherent X-ray Source for Macromolecular Imaging

This proposal outlines a three year program to develop a compact coherent X-ray source that is suitable for three-dimensional imaging of living organisms, tissue and cells with macromolecular resolution. The imaging is to be accomplished using X-ray rnicroholographic techniques. The X-rays will be produced by exciting atornic clusters or molecules with an intense ultrashort (femtosecond) laser pulse in the ultraviolet (UV). The resulting multiphoton ionization of the atoms in the clusters produces an electron-ion plasma which interacts strongly with the oscillating radiative field of the laser pulse. The collective motion of the electrons, due to the field-induced ponderomotive force, gives the electrons sufficient energy to collisionally eject an inner-shell electron from an ion in the cluster. A X-ray photon is emitted when an outer shell electron fills the vacant inner shell state in the "hollow" atom. Previous investigations have shown that the efficiency of this nonlinear X-ray generation process is increased if the interacting laser pulse is both intense (i.e. short and energetic) and coherent (i.e. phase controlled). We describe an all solid-state, high-power UV femtosecond laser system that is designed to be optimally suited for the excitation of atomic clusters for the production of X-rays. The laser system will be based on the new solid-state UV laser material Ce doped LiSrAlF6 which operates between 280 and 320nm, and will employ femtosecond laser technology that is already well established at wavelengths in the near infrared (~ 800nm). In addition to its use in the X-ray generation process, we expect this source of coherent UV femtosecond pulses to find many applications in spectroscopic biological research, e.g. the temporal resolution of the water solvation dynamics in enzyme reactions and other protein complexes. We intend to use the coherent X-ray source produced using the UV laser system to image chromosome dynamics during mitosis and meio sis. The microholographic techniques that have already been developed in our laboratories will enable three dimensional images to be reconstructed, in contrast to any other imaging technology available today with comparable marcomolecular resolution. Using X-rays with a wavelength of -l, this holographic technique should also allow the structure of biological molecules to be visualized in three dimensions without the need for crystallization. We propose to explore this possibility by investigating the avidin-biotin complex. The development of this laser-based technology has the potential to replace expensive synchrotron X-ray sources for imaging in the biological sciences.